Mathematical Sciences: The Use of Polynomial Splines in Statistical Modelling

Polynomial splines and their tensor products ar natural building blocks for constructing finite-dimensional estimates of infinite-dimensional main effects and low-order interactions; and the resulting analysis of variance decompositions provide an insightful tool for data analysis. The corresponding theory, methodology and software will be developed in a variety of settings, including regressions with application to time series and stochastic processes, logistic regression, Poisson regres- sion, proportional hazards modeling and modeling of multivariate and conditional distributions. Theoretical results will focus on rates of convergence, both locally and in various global norms. Methodology will be highly adaptive and computationally inten- sive. The overall goal of this research is to develop, justify, explain and make available a systematic extension of generalized linear models used by many scientists in drawing inferences from their data. Expanding the kinds of models to include multi- variate data that includes both continuous variables and variables with only a few possible values should make this methodology still more broadly useful.